SBIR Phase I: Actively Controlled Gas Bearings

A continuing problem in machine dynamics is that of transmission of vibration from the supporting surface (e.g., a floor surface) to machine components. Passive vibration isolators are effective for low frequencies but not for a broad range of frequencies. This project of research and development is the first step in providing a prototype, actively controlled gas bearing for precision movement in instruments and machine tools. The active bearings promise to provide a stiff support which can be made opaque to the tranmission of vibration from the supporting floor. The ultimate object is a complete functioning bearing system with a user friendly interface to facilitate incorporation in machines by designers not skilled in gas-bearing design.